Cross-Curricular Systems Thinking & Dynamic Using STELLA: Project CC-STADUS

This project will train a substantial number of teachers of science, mathematics and social studies in systems thinking. In 36 months, approximately 100 teachers will learn to use modeling systems, including STELLA which is available for even low-end Macintosh computers, to represent and solve complex problems. Twenty-two teachers will be the core team which accumulates develops and disseminates models related to mathematics, science, technology and society. Partnerships with local industry and agencies help by providing the ongoing support teachers need to develop relevant models. Even though the project directly serves only teachers in Oregon, it includes other supports for teachers such as the information of a national user's group for educators, networking in a way which permits sharing models, and significant commercial involvement in providing useful real world models. Through this project, teachers will begin building interdisciplinary applications for their courses. These models help students to understand and represent complex processes. The grantee provides matching costs of 22%.